CAREER: Classical Problems in Differential Geometry, Topology, and Convexity

Abstract

Award: DMS-0332333
Principal Investigator: Mohammad Ghomi

The principal investigator is interested primarily in the
interplay between the geometry and topology of submanifolds,
including low dimensional problems in Euclidean space (curves and
surfaces). These investigations often involve some notion of
convexity, and include the following categories: (i) Shadows (or
shades) on illuminated hypersurfaces, and their application to
geometric variational problems; (ii) Embeddings of manifolds in
Euclidean space without creating parallel or intersecting tangent
lines (totally skew embeddings), and their relation to quadric
hypersurfaces and nonsingular bilinear maps; (iii) Global
properties of locally convex hypersurfaces with boundary,
including connections with Monge-Ampere equations, and a new
convex hull property which is dual to that of negatively curved
surfaces; (iv) Certain deformations of space curves (unfoldings),
and their application to study of extremals of knot energies and
distortion.

Curves and surfaces are to geometry what numbers are to
algebra. They form the basic ingredients of our visual
perception, and inspire the development of far reaching
mathematical tools. For instance, those aspects of the PI's work
dealing with shadows on illuminated surfaces are motivated in
part by a study of soap films, and have connections to computer
vision (the ``shape from shading" problems). Further, the
investigations on knot energies may be of interest in studying
DNA. Yet, despite an abundance of potential applications and
centuries of pure study, there are still numerous open problems
in submanifold geometry and topology which are strikingly
intuitive and elementary to state. The PI believes that
advertising these problems at an early stage is an excellent tool
for sparking the interest of students in mathematical
research. With the aid of computer workshops, courses, seminars,
and the lecture series proposed in this project, the PI plans to
communicate the beauty and excitement of geometric problems to as
wide an audience as possible.